Cohomology and Actions of Finite Groups

DMS-9987434
Alejandro Adem

In this project the principal investigator proposes to use
both algebraic and topological methods to study a number of
basic questions in transformation groups, group cohomology
and related topics. In particular he proposes to study the
phenomenon of periodicity in group cohomology via group actions;
to analyze the cohomology of certain Galois groups arising
from basic questions in field theory; to calculate the
cohomology of low rank sporadic simple groups; and to
investigate a number of miscellaneous problems where a
significant interplay of algebra and topology is apparent.

Topology measures intrinsic properties of mathematical objects
which are invariant under deformations like twisting and pulling.
In particular symmetries can be fruitfully studied by using
topological methods. Examples arise from physics as well as
other natural sciences and obtaining precise mathematical methods
for their study is a challenging topic. This project proposes
to use recently developed mathematical techniques as well
as computer assisted calculations to achieve this in a
number of different instances which are known to be of
significant interest.